Assessing The Potential For Regenerative Control In An Active Vibration Isolation System

This GOALI award is to support a two-month collaborative research effort of UPI at Barry Controls of Brighton, MA. During the first four weeks of research, the PI will review vibration isolation system control strategies; formulate realistic controller and actuator models; and carry out robust stability analysis. The analysis will demonstrate the utility of a new analysis technique developed by the PI to solve a real world problem. During the next five weeks, the research will focus on power and energy consumption of an active vibration isolation system. Power requirements with a variety of controllers for both conventional and regenerative control strategy, it will be possible to quantify required power versus the performance of the closed- loop system, which is critical for system design. For the regenerative control strategy, the product of actuator force and actuator velocity, when positive--denotes the power required by the vibration isolation system; and when negative-denotes the power to be applied to the system, i.e., power that could actually be regenerated. A major goal of this research is to enhance an understanding of regenerative control as applied to vibration isolation systems.